Current Developments in Mathematics Conference

The departments of Harvard and MIT will sponsor an international
conference at Harvard for one and a half days. The purpose is to
bring excellent speakers to explain the forefront of different fields
in mathematical science, which will promote interdisciplinary
activities among mathematicians of different fields. This has been an
annual event. This year, the following will be speakers: Ken Ribet,
who will talk on the works of Chandrashekhar Khare and Jean-Pierre
Wintenberger, on the proof of Serre conjecture (1987) in many cases.
Serre conjectured that odd irreducible two-dimensional mod p-Galois
representations should arise from modular forms. Yakov Sinai will
talk on mathematical problems in fluid dynamics, where he will
describe the construction of power series solution to the
Navier-Stokes equation. Ed Witten will talk on the recent important
development of how the Langlands program appears in quantum field
theory and how mathematical ideas can come from such interpretations.
Terry Tao will talk on his work on harmonic analysis and nonlinear
hyperbolic equations. Simon Donaldson or Paul Seidel will talk on
recent advances in symplectic geometry.

An important component of the conference is to help young
post-doctoral fellows and graduate students to come from all over
the country and other parts of the world to learn, to communicate and
to work with the leaders of the field that attend this conference.
Their travel will be covered depending on the extent of the
availability of the fund. Minorities are especially encouraged to
come. Since the topics cover a wide range from number theory,
geometry, topology, algebra, mathematical physics to computing and
applied mathematics in general, we expect a great deal of
interchange of ideas during the conference. A rather detailed
preliminary book will be printed to help the audience understand the
lectures. At the end, a book written by the speakers will be
published.